SHF: Small: A Dynamic Analysis and Test Generation Framework for JavaScript and Web Applications

JavaScript is the most popular programming language for client-side
web programming. Advances in browser technologies and JavaScript
engines in the recent years have fueled the use of JavaScript in Rich
Internet Applications, and several mobile platforms including Android,
IOS, Tizen OS, Windows 8, Blackberry, and Firefox OS, support
applications written in JavaScript/HTML5. With a renewed interest in
JavaScript, many complex applications such as Google docs, Gmail, and
a variety of games are being developed using
HTML5/JavaScript. However, unlike C/C++, Java, and C#, JavaScript is
significantly shorthanded in the tools landscape. The dynamic and
reflective nature of JavaScript makes it hard to analyze it
statically.

This project investigates a dynamic analysis framework and several
dynamic analysis techniques for JavaScript. The analysis framework
provides a few useful abstractions and an API that significantly
simplifies implementation of dynamic analyses for JavaScript. The
framework works through source code instrumentation and allows
implementation of various heavy-weight dynamic analyses and test
generation techniques. The projects investigates and implements
several dynamic analyses including concolic testing, pure symbolic
execution, a detector of likely type inconsistencies, and a runtime
memory profiler. The techniques developed in this project are
suitable for analyzing and testing that web applications written in
JavaScript/HTML5 are free of common correctness and performance
bugs. The techniques will benefit directly web applications
programmers, and indirectly the numerous users of mobile and web
applications.